Collaborative proposal: Regulation of pre-mRNA splicing by light signals

The perception of light is one of the most fundamental ways that plants interact with the environment to alter growth and maximize capture of sunlight. This project will address how environmental light signals perceived by the phytochrome photoreceptors regulate gene expression to affect plant growth and productivity. This project will train the next generation of scientists preferentially from underrepresented groups, who will gain considerable experience in developing new tools in agricultural biotechnology to improve food security, human health, and environmental sustainability. Development and dissemination of educational toolkits will greatly expand educational opportunities to high school students in scientific research. Presentations in biology classes of local K-12 schools will not only teach young students about genetically modified organisms (GMOs), but also improve communication and teaching skills of participating researchers. This will expose a diverse group of K-12 students to a modern research facility, introduce them to the scientific method in a fun and engaging way and inspire them to choose a scientific career path.

This project will elucidate poorly understood mechanisms by which phytochromes regulate gene expression at both transcriptional and post-transcriptional levels. Alternative splicing (AS) is a highly regulated process that enhances the diversity of mRNAs encoded in the genome. Previous work by this group showed that this process is also affected by light signals mediated through the photoreceptor phytochrome B (phyB), thereby providing a novel mechanism by which plants can rapidly respond to light signals. The goals of the project are to: 1) Understand the biochemical mechanisms of regulation of splicing by the SFPS-RRC1-SWAP1 splicing module, and 2) Investigate how phyB regulates splicing through the SFPS-RRC1-SWAP1 module under light. The project will use biochemical, molecular, genetic and genomic approaches to elucidate the early events by which phytochromes directly affects alternative splicing in response to light.